Japan (JSPS) Postdoctoral Program: Design Methodology of Upper Stage Composite Rocket Motor Cases

This award will provide supplementary support to enable Dr. Kurt Gramoll of Memphis State University to conduct collaborative research with Dr. Junkoro Onada for a period of one year at the Institute of Space and Astronautical Science, University of Tokyo, Japan. They will investigate new design procedures to increase the efficiency of upper stage rocket motors with casings made of fiber reinforced plastic materials. These structures use reinforcing elements to minimize radial strain in critical areas, and there is currently no widely accepted analytical procedure to specify the size and placement of these elements. Structural analysis tools such as anisotropic shell theory and finite- element analysis will be used to develop a design procedure to minimize radial strain and shear stresses. The results of this part of the program, and of rocket motor tests performed to verify them, will be incorporated into an overall design method for rocket motor cases. Dr. Onada's experience in rocket motor design and application will complement Dr. Gramoll's facility with analytical methods in this research effort.